Mathematical Sciences: Inequalities for Adapted Processes

The principal investigator will use this award to continue his research in the area of inequalities for adapted processes. The award will help him visit senior researchers in the field as well as attend a workshop at the Mathematical Sciences Research Institute.